HDR DSC: Collaborative Research: Transforming Data Science Education through a Portable and Sustainable Anthropocentric Data Analytics for Community Enrichment Program

This project will focus on human-centric analytics, or anthropocentric data analytics, to provide a common ground for beginning studies in data science and to prepare students to address interdisciplinary problems. As one of the most promising subareas of data science, human-centric data analytics either considers humans as the research object or involves humans as the executors over all stages of data analytics. The proposed Anthropocentric Data Analytics for Community Enrichment (ADACE) project will form a three-institution partnership, with University of Tennessee at Chattanooga (UTC) as the coordinating organization, and UTC, Chattanooga State Community College and Howard University as implementing organizations. Together they will address the challenge of developing a large, high-quality workforce skilled in data-related disciplines. This is essential for the United States to maintain its competitiveness in the 21st century. The project aims to establish an interdisciplinary platform with a curriculum that integrates real-world community research projects. In today's increasingly globalized world, data science occupations are essential for sustained social and economic development. Most U.S. colleges and universities are witnessing an increased interest from students in these programs offered by computer science and other related departments. However, a lack of training programs and community engagement through real-life projects makes it difficult to keep students engaged and interested. Limited access to internships can also reduce students' success in data science and may even direct them away from these fields. This project addresses the critical need to attract higher numbers of talented students, to better stimulate students' interest, to increase the retention rates, and to eventually meet the rising workforce demand.

The project endeavors to promote undergraduate training in data science. An interdisciplinary and multi-institutional collaboration will strive to establish an infrastructure that accommodates 41 students and spans the entire four years of their college career. The project aspires to enhance current data science and related curricula of the participating institutions, as two of them have data science programs for undergraduate and graduate students. To attract students with a broad range of interests, ADACE will consist of four core modules - mathematics foundation, computational foundation, data science, and data science applications - and integrate multiple interdisciplinary and human-centric community projects. Those projects will feature six areas: (1) human-in-the-loop data integration, (2) visible neural network architecture, (3) human-in-the-loop machine learning, (4) seamless interaction between users and machines, (5) human-oriented topics investigating the behavior of individuals or society, and (6) studies of ethics in terms of both AI scientists/engineers and artificial agents. Participating institutions will have the opportunity to leverage existing relationships with local for- and non-profit organizations to expose students to real-world problems of data science and provide opportunities for networking. Each concentration will be led by a co-principal investigator with expertise in that area, building on their research findings and experience with interdisciplinary collaboration to shape innovative curricula and research projects. Students will have the opportunity to gain knowledge in data science, problem-solving skills, hands-on experience, and rigorous research training through this proposed program. All curricular materials will be designed to be portable, sustainable, and easily disseminated to ensure their expanded impact. They will also be evaluated for measurable outcomes and tailored to include non-traditional students, who form a large portion of the potential data science workforce in the regions surrounding the participating institutions. NSF's Harnessing the Data Revolution Data Science Corps program focuses on building capacity for harnessing the data revolution at the local, state, national, and international levels to help unleash the power of data in the service of science and society. Projects in this program are being jointly funded by the NSF's Harnessing the Data Revolution Big Idea; the Directorate for Computer and Information Science and Engineering, Division of Information and Intelligent Systems; the Directorate for Education and Human Resources, Division of Undergraduate Education; the Directorate for Mathematical and Physical Sciences, Division of Mathematical Sciences; and the Directorate for Social, Behavioral and Economic Sciences, Office of Multidisciplinary Activities and Division of Behavioral and Cognitive Sciences.